Mathematical Sciences: Models for the Spread of HIV; Equations with Piecewise Continuous Argument; Dynamics of Discretizations

This project will focus on three scientific areas. The first concerns mathematical analysis of epidemiological models for the spread of HIV (human immunodeficiency virus). Mathematical models for the spread of the virus will be developed and evaluated. The models will be based on dividing the population into groups according to criteria such as sex, sexual behavior and socioeconomic categories. They will be represented in terms of ordinary and delay-differential equations. Stability and bifurcation phenomenon will be analyzed, simulations performed and comparisons made among the predictions of the different models. A second line of investigation concerns differential equations with piecewise continuous delays. Such equations arise in a number of physical contexts governed by memory effects. An objective of this work is to develop theory and applications of initial and boundary-value problems. Conditions for stability will be sought; periodic and oscillation phenomena will be studied for equations with bounded and unbounded delay. General functional differential equations of alternating type will also be considered. Work will also be done investigating Liapunov functions and the qualitative behavior of discretizations. This research will focus on stability questions related to nonlinear difference equations using an extension of Liapunov's direct method and the invariance principle. The relation between the asymptotic dynamics of classes of differential equations and the dynamics of discretized and semidiscretized versions of these equations will be explored. Applications to population dynamics and chemical kinetics will be sought.